Harmonic Forms and Topology of Complete Manifolds

DMS-0404817

P.I.: Jiaping Wang, University of Minnesota-Twin Cities

Title: Harmonic forms and topology of complete manifolds

ABSTRACT

This proposed project is about relating the analysis and topology on
complete noncomapct manifolds. In particular, it is proposed to search
for an extension of the de Rham-Hodge theory, and to relate the spectrum of
the Hodge Laplacian to the topology of manifolds.

The main objective of this project is to describe some large scale
structures
of objects which are high dimensional analogue of the unbounded surfaces.
The approach is to inspect the physical steady states of a naturally
defined
energy on such objects. The results and techniques are expected to be
useful
in describing more complicated systems arising from physics, biology and
other
branches of science.